Marine Geological Sample Collection: Oregon State University

The core and dredge collections of Oregon State University will be maintained, samples distributed, and data provided to the NOAA National Geophysical Data Center. The core/dredge repository provides a valuable source of marine seafloor samples for use by national and international scientists.